Development of Visual Showcase Experiments for UndergraduateChemical Engineering Laboratories at Ohio University

This project constructs a series of "showcase" experiments for the undergraduate chemical engineering laboratories at Ohio University. The emphasis of these experiments is their visual nature, allowing for a vivid demonstration of underlying engineering principles. Traditional experiments in undergraduate laboratories can be greatly enhanced through the use of clear tubing, color change reactions and real-time data display. Experiments are planned in multiphase mixing, reaction kinetics, fluid flow, heat transfer, process control and materials analysis. The experiments serve many purposes: they are used as experiments in the undergraduate laboratory courses, as demonstration projects in the appropriate undergraduate lecture courses, and as demonstration experiments for a "Taster" course in chemical engineering being implemented by the department. This course is an intensive two-day experience for high school students designed as an introduction to chemical engineering. The ability to let the participants conduct visually dynamic experiments is critically important to excite these students to pursue a career in chemical engineering.